Efficiency of Human Vision

Image understanding, how the visual system determines what and where objects are just by looking, is one of science's greatest mysteries. Despite its seeming effortlessness, it is a problem because the image input to the eye is locally ambiguous, i.e., in any patch of a natural image, there is rarely an unequivocal cue to shape, surface material, or lighting. Somehow, the visual system makes its best bet as to what is out there from the noisy pattern of intensities that make up the image, and this visual perception in a complex natural environment is rarely wrong. The mystery is exactly how the human visual system solves the problem of ambiguity by exploiting the regularity or statistical structure in the eye's image and its visual world. This research will model regularities in images and object properties and measure how well human observers make use of their implicit statistical knowledge of these regularities. Whenever the statistical information available for a visual task can be made explicit and quantified, it is possible to model an "ideal" observer, one that makes optimal use of this information. A direct comparison of human and ideal performance provides a measure of statistical efficiency for a visual task. This research will study efficiency in four problems of image understanding: 1) Nearby points in natural images often have similar intensities, that is, brightnesses are correlated. This research will measure the efficiency with which human vision is tuned to the intensity correlations in natural images and relate this to known image encoding processes in visual cortex. 2) Many objects have some form of symmetry in 3D, but this symmetry gets distorted when the image is formed in 2D. In principle, symmetry can be used to see how objects are slanted in space and to infer object parts that are occluded. This research will show what forms of symmetry are detected most efficiently and how they may be used. 3) Nearby objects often cast shadows on each other. Experiments will show whether depth from cast shadow information is used by human vision to infer shape and how it interacts with other cues to depth, such as motion. 4) Object recognition is formally difficult because of uncertain illumination and viewpoint. The research will measure efficiency for the classification of 3D objects from 2D images. Understanding vision has become a key problem in brain and cognitive science. The problem of image understanding is not only important to our understanding of how we acquire knowledge of the world, but it is formally hard, resisting the best efforts of computer scientists to produce a machine that can recognize objects in natural images. Progress in this quest can inform research into brain mechanisms as well as computer vision.